Proceedings of: Satellite Symposium on Neural Development and Regeneration; October 26-27, Univ. of Misssouri-Columbia

This project will defray part of the publication costs for the Proceedings of a Symposium on Myelin held in Columbia, Missouri in October 1990. Myelin provides an insulating sheath around nerve fibers and its integrity is essential for proper nerve function. Participants in the Symposium discussed aspects of myelin development and regeneration. Publication of the Proceedings of the meeting will provide neuroscientists worldwide with an up-to-date appraisal of the research being done on this important constituent of the nervous system.